Analysis and Use of Excluded Volume

9421152 Serwer The excluded volume of macromolecular solutes has dramatic effects on the biochemical activities, conformation and assembly of biological macromolecules. Analysis of in vitro excluded volume effects is performed to both understand in vivo excluded volume effects and enhance the in vitro yield of several biochemical processes of practical interest. In previous work by the PI and coworkers, the first quantitative analysis has been performed of the excluded volume of DNA-polymer interaction in mixtures that consist of both double-stranded DNA and electrically neutral polymers. Both biomolecular joining and cyclization of DNA were studied. These studies have revealed the reason for a dependence of excluded volume on the molecular weight of the neutral polymers. They have also revealed excluded volume-induced protection of high molecular weight DNA from hydrodynamic shear-induced breakage. Incompletely explored areas include statistical analysis of the excluded volume induced changes in the conformation of single DNA molecules. Incompletely explored practical applications include use of excluded volume to either prevent the hydrodynamic shear-induced breakage of double-stranded DNA or increase the rate of in vitro biochemical reactions. The specific aims are the following: (1) By use of video light microscopy, statistical analysis will be performed by the dimensions of single DNA molecules after excluded volume-induced condensation. Results will be obtained for several concentrations and types of polymer. Tests will be made of our current theoretical framework for understanding excluded volume effects. (2) By use of both pulsed and constant field quantitative gel electrophoresis, the extent will be determined to which manipulation of excluded volume can be used to both ligate long DNA and prevent the hydrodynamic shear-induced breakage of long DNA. The research proposed contributes to both fundamental understanding of in vivo biochemistry and the practical use of in vitro biochemistry for the purposes of biotechnology. %%% Addition of chemically nonreactive macromolecules (polyethylene glycol's are often used) to solutions of biological macromolecules (such as DNA) has dramatic effects on both the biochemical activity and the conformation of the biological macromolecules. Some of these effects are caused by restriction of the volume available (excluded volume effects). For double-stranded DNA, some excluded volume effects can be visualized by light microscopy of single DNA molecules; these effects include collapse of a random coil of DNA. The goals of our research are the following: (1) By use of light microscopy, statistical analysis will be performed of the dimensions of single DNA molecules after excluded volume induced collapse. (2) By use of gel electrophoresis, the extent will be determines to which manipulation of excluded volume can be used to both promote the joining of DNA molecules and prevent breakage of DNA that occurs when long DNAs are handled by pipeting. Tests will be made of our current theoretical framework for understanding excluded volume effects. The research proposed contributes to both fundamental understanding of the in vivo excluded volume effects of cellular macromolecules and the practical use of in vitro biochemistry for the purposes of biotechnology. ***